PPD: A Third Edition of the AAAS Resource Directory of Scientists and Engineers with Disabilities

The AAAS Project on Science, Technology and Disability is conducting a project to prepare, produce and disseminate a third edition of the Resource Directory of Scientists and Engineers with Disabilities. The current Directory, published in 1987, is outdated and lacks data on many outstanding scientists and engineers with disabilities whom AAAS has identified since the publication of the last edition. A number of individuals listed in the 2nd edition have new degrees or positions, and some are deceased. A new edition is needed so that students with disabilities, teachers, administrators, counselors, families, program officers and employers can network with working scientists and engineers with disabilities who can provide knowledge and experience in eliminating barriers and successfully managing their education and entry into a science or engineering career. The Americans with Disabilities Act of 1990 requires public facilities and programs to be made accessible to people with disabilities. The individuals who will be listed in the Resource Directory are familiar with this law and, even before its inception, were designing adaptations and providing technical assistance on accessibility issues. They will be available through the Directory to assist others in restructuring their science and engineering environments. The products of this project will be three: a print edition of the Resource Directory, an alternative format (disk) edition of the Resource Directory for people who are blind or print-impaired, and lists of scientists and engineers with disabilities in specific science disciplines on disk for use by NSF program officers in selecting peer reviewers and committee members. The revised edition will be cross-referenced by scientific specialty, disability, location and gender and will list approximately 1,200 individuals.